Twentieth International Conference on Domain Decomposition Methods

This NSF award will provide partial financial support for the Twentieth
International Conference on Domain Decomposition Methods, to be held at
the San Diego Supercomputer Center on the campus of the University of
California at San Diego, in February 2011. Domain decomposition, in some
form, is by far the most common paradigm for large-scale simulation on
massively parallel distributed, hierarchical memory computers. This
paradigm permeates almost all arenas of simulation, from such practical
concerns as numerical climate modeling, modeling of complex biological
molecules and biological processes, the design and testing of automobiles,
aircraft and other structures, and the modeling of complex porous media
flows, to more abstract scientific endeavors such as modeling black holes
and searching for the origins of the universe. However, many users of
domain decomposition do not avail themselves of the most sophisticated
and efficient methods known. This has become more pronounced as the size
of the large-scale scientific simulation community has grown with the
availability of hardware in the past few years, particularly inside
scientific communities without traditionally strong ties to the
computational mathematics or computer science communities.

The goal of this conference is to promote advances in domain decomposition
methods by encouraging interdisciplinary technical interchange throughout
the international computational science and engineering communities, and by
taking advantage of conference siting, to attract to this important area
many new U.S. scientists. It is strongly aligned with NSF's, and more
generally, our national priorities to promote and advance fundamental
interdisciplinary research in Computational Science and Engineering.
NSF funding will make possible financial support for graduate students,
post-docs, and other young researchers who otherwise might not be able to
attend. The funding will also allow for increasing participation of women,
African Americans, and Hispanic Americans from across the nation as well as
from the diverse Southern California scientific community.